Holomorphic curves in symplectic manifolds and integrable systems

Abstract

Award: DMS-0707150
Principal Investigator: Todor Milanov

The long term goal of these projects is to understand the
topology of moduli spaces of holomorphic curves in symplectic
manifolds in terms of the theory of integrable systems. The
first project aims to construct an integrable hierarchy which
governs the topology of the moduli spaces of degree d stable
holomorphic maps from a genus-g, nodal Riemann surface to a
variety X which is assumed to be a toric complete intersection.
The topological information is encoded in a formal power series
called the total descendant potential of the toric variety, and
the goal is to show that this potential is a solution to an
integrable hierarchy. The second project in this research
program is dedicated to an interaction of integrable systems with
symplectic field theory of a compact Kaehler manifold Y,
developing a potential related to the total descendant potential
described above. Relationships are expected to emerge between
Gromov-Witten invariants for Y and for a projective line bundle
over Y, with the relationships described via transformations of
integrable systems.

Symplectic geometry is the structure underlying the Hamiltonian
formalism of classical mechanics, in which the behavior of a
mechanical system is determined by an energy-like function.
Geometric spaces carrying such structures can be high-dimensional
and structurally complicated, and much recent work in the area is
devoted to exploring symplectic structures through associated
spaces of well-imbedded two-dimensional subsurfaces of them.
Two-dimensional surfaces have been studied for more than 150
years and our detailed understanding of them leads to constraints
upon the associated invariants of high-dimensional symplectic
manifolds. The principal investigator's work explores new
constraints of this kind that take the form of well-behaved
differential equations, the integrable systems of the proposal
title.